Conference: The 2024 Summer School on Random Matrices

Random matrices are arrays of random numbers. Such objects arise from physics, statistics, and electrical engineering when considering quantum systems or large data sets. Random matrix theory is an active area of research in mathematics, science, and engineering due to its wide range of applications. New techniques for random matrix theory are currently undergoing rapid progress. The 2024 Summer School on Random Matrices, which will take place at the University of Michigan from June 17-28, 2024, is intended to provide starting graduate students with the opportunity to learn new techniques different from their own backgrounds. This summer school is the fourth one, following the successful ones in 2016, 2018, and 2022.

Four speakers will deliver lectures on various aspects of random matrix theory, such as high-dimensional optimization problems, potential theory for random matrices, and applications of random matrix theory in data science and statistics. There will be intensive group problem sessions. The website for the summer school is https://sites.google.com/umich.edu/rmtschool/home